Semiconductor Nanowires for Efficient Transport of Energy and Charge

TECHNICAL SUMMARY:
A thorough experimental study to improve the photoluminescence efficiencies in quantum wires and related nanostructures is to be undertaken with the financial support from the Macromolecular, Supramolecular, and Nanochemistry Program in the Division of Chemistry at the National Science Foundation. Nanowires have potential applications in nanoelectronics, nanophotonics, and solar-energy conversion. There is also fundamental interest in 2D quantum confinement and the transport of excitons and charge carriers in quantum wires. Such applications and fundamental studies require that nanowires be well passivated to inhibit the loss of excitons and charge carriers to surface traps. Efficient performance of a nanowire or quantum-wire device requires that carriers not be disproportionately trapped and recombined at surface/interface sites. Photoluminescence efficiencies provide a measure of the quality of surface passivation and the scarcity of trap sites that induce nonradiative recombination. Unfortunately, the photoluminescence efficiencies in nanowires and quantum wires reported to date are poor. However, efficiencies of 30% and 7%, respectively, in CdSe quantum belts and CdTe quantum wires were recently achieved. Therefore, the problem of photoluminescence efficiency in quantum wires is surmountable. A range of successful strategies just emerging for quantum dots and rods have yet to be tried for quantum wires. The primary goal of the project is thus the synthetic achievement of quantum wires and related nanostructures having well-passivated surfaces, capable of the efficient transport of energy and charge.
The specific goals of the proposed work are as follows.
- Quantum belts of various compositions, lengths, and thicknesses will be prepared and studied.
- Core-shell strategies, including core-shell-shell and gradient-shell strategies, in quantum wires will be explored.
- Doped quantum wires will be prepared to investigate band-gap-narrowing, and excitonic magnetic polarons in dilute magnetic semiconductor quantum wires.
- A wide variety of organic and inorganic surface-passivating agents, including metalloorganic compounds (Lewis acids) will be surveyed to passivate hole traps.

NON-TECHNICAL SUMMARY:
There is considerable interest in incorporating semiconductor nanocrystals into next-generation devices for solar-energy conversion. Solar cells constructed from semiconductor nanostructures are expected to be fabricated more economically than the traditional silicon-based devices, and to have other application advantages. A solar cell functions by capturing light energy and converting it to energetic positive and negative electric charges, which are then separated and transported to opposite electrodes in the cell. This provides electrical energy for charging a battery, or operating an electrical appliance. The critical steps are thus the efficient separation of the positive and negative charges, and the efficient transport of those charges to the electrodes. Semiconductor nanowires are targeted for use in new solar-cell designs because they can in principle transport energy and charge over long distances, the entire lengths of the nanowires, which can span the inter-electrode separations. However, efficient transport will require that charges not be trapped at defect sites in the wires. With financial support from Macromolecular, Supramolecular, and Nanochemistry Program in the Division of Chemistry at the National Science Foundation, this project will identify and eliminate those trap-site defects, enabling the application of semiconductor nanowires in solar cells, nanoelectronics, and in small-scale devices for light detection and generation.
The broader impacts include technological advances to assist in addressing the nation's energy challenge. The PI also has an excellent record of training women and members of underrepresented groups, thereby increasing the diversity of the nation's technological work force. The PI is co-leading an effort at Washington University to increase the retention of undergraduate women in science, technology, engineering, and math (STEM) fields.